Research Experience for Undergraduates in Microelectronics

This program addresses the need to ensure the adequate supply of scientists and engineers by exposing undergraduate minority students to research in the critical phase of his/her educational career. The students will be trained in the area of microelectronics. The undergraduates will be exposed to a variety of disciplines, including material science, mechanics, thermal science and electrical and electronic engineering.